SGER: Toward Optimal Structures of Wide-Sense Nonblocking Multicast Switching Networks

Switching networks serve as the core of network switches and routers, and communication
subsystems of multiprocessor and multi-computer computing systems. There has been a
growing interest in developing high-speed switches for multicasting. A wide class of
applications, such as teleconferencing, video distribution, LAN bridging and distributed
data processing, require multicasting communications. The essential network components
for such applications are multicast switches. Rearrangeable nonblocking (RNB) multicast
switching networks are used for packet switching, and strictly nonblocking (SNB) and
wide-sense nonblocking (WSNB) multicast switching networks are used for circuit switching.
Optimal RNB multicast switching networks have been constructed for a long time, and it
was shown that the lower bound for the cost SNB multicast switching network is O(N^2)
in 1980. Thus, for scalable circuit switching applications minimum-cost WSNB multicast
switching networks are the only solution. Multicast networks (a.k.a. generalized
connection networks, generalized connectors, distribution networks) were first formally
introduced in English literature by Masson and Jordan in 1972. Until now, the WSNB
multicast switching network with lowest cost remains to be Pippenger's network designed
in 1973. It has been a general belief that Pippenger's network is very difficult to
improve. One of the major goals of this proposed research is to seek WSNB multicast
switching networks better than Pippenger's network. In addition, we also consider
constructing optimal or near-optimal nonblocking multicast switching networks under
routability and optical implementation constraints. All problems considered are
constrained optimization problems with important implications. This proposed work not
only has significant theoretical importance but is also of practical value.
In the last 33 years, no progress on WSNB multicast switching networks better than
Pippenger's network has been reported. The intellectual merit of the proposed research
lies in the attempt of tackling a long-standing open theoretical problem, and its related
problems arising in new network technologies.